REU: Summer Undergraduate Research Fellowship Program

This is a Research Experiences for Undergraduates project. It provides research experiences for eight students at the Southwestern Graduate School of Biomedical Sciences, University of Texas Health Science Center. Students will participate in projects involving biology, chemistry and related biomedical sciences.